Elasticity of Mantle Minerals

An understanding of the composition and crystal structure as a function of depth in the mantle must rely on the comparison of the in situ properties deduced from seismology with those deduced from laboratory studies. The laboratory studies can provide data that are directly comparable with the properties of the mantle as well as data that define theoretical models for predicting properties which are not measurable. Single crystal acoustic velocities can best serve these needs, and Brillouin scattering provides a technique that can best define these data. The thrust of this research is to use this technique to directly characterize potential mantle minerals under simulated mantle conditions and to provide data for the purpose of directing theoretical modeling of material properties.